International Conference on Application Specific Array Processors, August 4-7, 1992, Berkeley, CA

This is an attendance and travel grant for the 1992 International Conference on Application Specific Array Processors. The conference is sponsored by the University of California at Berkeley in cooperation with the IEEE Computer Society and is held in Berkeley California. The conference emphasize parallel computing, systems, design methodologies technology and implementations within the context of application specific computing. This is their sixth of a series of conferences which provide an important forum for the discussion and dissemination of research being done on application specific computing systems in the US, Europe and Japan.